U.S.-Japan Cooperative Research: Construction and Physical Properties of Self Supported Liquid Crystal Display Films Composed of Polymer and Liquid Crystals

9317404 Stein This award supports a two-year cooperative research project between Professor Richard S. Stein, Department of Polymer Science and Engineering, University of Massachusetts, Amherst, and Professor Tisato Kajiyama, Department of Chemical Science and Technology, Kyushu University, Fukuoka, Japan. Professor Muthukumar Murugappan, University of Massachusetts, will also be involved in the project. The joint research will focus on the use of polymer dispersed liquid crystals as display and light control devices. The investigators will study the phase diagram for polymer-liquid crystal mixture and the kinetics of phase separation. The studies will involve two phases: (a) discrete systems and (b) bicontinuous systems. Preliminary studies have already been carried out on the discrete systems. The purpose of the present project is to extend these studies to bicontinuous systems, to more fully explore the liquid crystals orientation distribution within domains and its change with applied fields, to study surface anchoring forces between the liquid crystals and the domain walls and the effect of surface modification on these, to study and explain the time dependence of orientation changes and its effect on scattering and to theoretically model these phenomena. ***